A Special Symposium on Surface Engineering and Tribology

9315861 Saka Partial support is provided to a symposium which will explore the relative roles of tribology and surface engineering, where tribology is defined as the study of surfaces in relative motion, and surface engineering is seen as the intended creation of surfaces with specific properties. *** n o COMPOSITPRE \A '2q 93AWARDSXLS eJ & SUSDEVELDOC v %^ SETNYIPSDOC Py V MAYPANL DOC <{ FUTYRCMTDOC vk &% 9315861 Saka Partial support is provided to a symposium which will explore the relative roles of tribology and surface enginee ! ! F 3 3 . 3 ! ! ! ! K Times New Roman Symbol & Arial NewCenturySchlbk 5 Courier New QMS-PS 820 LPT2: pscript QMS-PS 820 U D o d , X Z e N . D J ( . 1 3 " h " " / Martha P. King Martha P. King